Oceanographic Technical Services, R/V Point Sur, 2012 – 2016

San Jose State University proposes to support technical services on R/V Point Sur, a 135’ general purpose UNOLS research vessel operated by the Moss Landing Marine Laboratories as part of the University-National Oceanographic Laboratory System research fleet. They request support for basic services and maintenance of a towed, undulating vehicle as specialized services. They will provide one technician on each seagoing research project of R/V Point Sur to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation. The budget in this proposal is for the first year of a 5-year continuing grant.

Broader Impacts
The principal impact of the present proposal is under criterion two, providing infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The support of maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.